Developing Advanced Digital Design Laboratory Using Field Programmable Gate Array Development Systems

Seniors in electrical engineering and microelectronics courses at San Jose State University are using Field Programmable Gate Array (FPGA) development systems as a design tool in their digital systems laboratory experience. New laboratory modules are used in teaching computer organization and digital system interfacing courses. The FPGA laboratory facilities also support senior student projects, providing a more interesting learning and teaching environment by enabling rapid prototyping and concurrent engineering.